Algorithmic Fault-Tolerance in Linear Signal Processing Systems

High Speed Signal Processing is an important application of special purpose numerical processor designs. These digital processing systems involve interconnecting complex integrated circuits or a large self-contained VLSI design; both implementations contain dense electronic structures susceptible to internal temporary and permanent failures. Such systems are difficult to protect sufficiently by classical fault-tolerant computer design methods even though these systems also process numerical based data. This research examines new methods for introducing efficient fault- tolerant design methods in linear signal processing systems without degrading high speed performance. The approach is based on block and convolutional codes used in communication applications for error detection/correction in data sequences. Four specific research topics are addressed in this work. One topic involves the study of new design and modification options for real block and convolutional codes, while another examines the coverage for this type of algorithmic fault-tolerance. Practical CAD implementations are made to provide a basis for assessing overhead complexities. Software tools to aid designers in incorporating fault-tolerance easily within practical systems are also developed.